Capital University Center Connection to the Internet

This award is made under section B., Connections for Higher Education Institutions, within "Connections to the Internet", NSF 98-102. It provides partial support for South Dakota State University in partnership with the Capital University Center (CUC) to gain access to statewide network resources and the Internet. The Center's purpose is to bring college education to an area in the central part of the state where colleges and/or universities are over 125 miles away. The work will be done in partnership with South Dakota State University (SDSU) who is the provider of delivery of courses and programs needed for workforce development and continuing education. Availability to the Internet will be provided to faculty, staff, and student members of this rural community.